SBIR Phase I: GIGAHERTZ ULTRASONIC FINGERPRINT IMAGERS

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project is to provide spoof-free biometric fingerprint sensors. Consumer confidence in adopting many technologies such as IoT devices, and reach a cash-less society is limited by our confidence in transactions being fraud-free. Around the world, there are varying degrees of fraud and it is well known that poorer countries have higher levels of fraud then more advanced countries. By providing a trustable biometric device, the proposed commercialization plan will allow lower levels of fraud and allow greater degree of economic activity bringing up standards of living. The technology of GHz ultrasonics for sensing also has the potential for to be used for applications in being able to image baby fingerprints, enable fingerprint readers in fire-arms for authenticated use at very fast speeds, and allow integration with credit and debit cards. The success of the commercial activities will create a new paradigm for trusting the electronic economy.

This Small Business Innovation Research (SBIR) Phase I project will develop revolutionary new biometric sensors. Biometric technologies range from sensing the unique patterns of the eyes, to voice, and fingerprints amongst other markers. Capacitive fingerprint sensors, and optical fingerprint sensors are very commonly found in smartphones and desktop applications. These technologies produce images that are often limited in resolution and are not spoof-proof. For example, optical fingerprint readers can be spoofed by fingerprint images and capacitive fingerprint sensors can be spoofed by skin-like dielectric polymer fingerprint molds. Ultrasonic images offer the potential for detecting tissue material properties that can help identify fake fingerprints. Although many low-frequency technologies for ultrasonic fingerprint sensing are available, very few have made it into the market in large quantities owing to cost, packaging, and insufficient SNR and resolution. In this project the company will extend the frequency of operation to the GHz range to achieve four to eight times the standard industry standard of 500 dpi resolution. Coupled with integrated circuits operating at low voltages, the company aims for integration of the sensors in very thin platforms such as credit cards.